U.S.-Japan Joint Seminar: The Structure and Evolution of Neutron Stars/November 1990/Kyoto, Japan

This award will support the participation of six U.S. scientists in a U.S.-Japan joint seminar on the internal structure, dynamical behavior, formation, and evolution of neutron stars. Emphasis will be placed on theoretical work on these topics which is relevant to understanding X-ray, optical, and pulsar- timing observations, including the superfluidity and equation of state of hadron matter, the role of neutrinos and hot equations of state in neutron star formation and earliest evolution, theories relating to the recent supernova in our galaxy (SN1987A), and mechanisms of cooling and heating neutron stars. Participants in the meeting represent major U.S. and Japanese research groups concerned with the fundamental physics and astrophysics of neutron stars. Seminar co- organizers are Dr. David Pines, Department of Physics and Center for Advanced Study, University of Illinois at Urbana- Champaign, and Dr. Ryozo Tamagaki, Department of Physics, Kyoto University, Japan. The seminar will take place November 6-10, 1990, in Kyoto, under the auspices of the U.S.-Japan Cooperative Science Program. Since the discovery of pulsars and galactic X-ray sources, significant progress has been achieved in the field of neutron star physics. The discovery of Supernova 1987A in our galaxy stimulated much observational and theoretical work in this area, both in the U.S. and Japan. Though various meetings have been held to consider recent observational results, there has been much less opportunity for U.S. and Japanese neutron star theorists to meet and discuss their work relevant to understanding the observations. This seminar is intended to enhance significantly the interaction and exchange of knowledge among the currently most active experts of both countries in this field.